Engineering Research Equipment Grant: Image Processing, Vision and Computer Vision Networking System

This grant provides equipment to be used in conjunction with a high-speed, large memory computer system which will be dedicated to ongoing projects of active research in image processing, visual information processing, pattern recognition, and electrical communications. The system will provide essential computing capabilities to these research activities which are not presently available from any computer facilities within the University. It will also form a network to substantially enhance three existing, fully operational research laboratories in the Department of Electrical Engineering at Rutgers University. This will allow for research efforts of significant substance not at all feasible with available equipment. The enhanced system will accommodate the central processing unit's intensive computational demands we well as accommodate the large mass storage requirements.